U.S.-Mexico Planning Visit: Development of Transgenic Plants Containing Plant Viral Genes to Control Plant Viruses

9703925 Niblett This U.S.-Mexico award will support a planning visit which will allow Dr. C. L. Niblett, University of Florida, to go to Irapuato, Mexico to work with Dr. Alejandro Blanco-Labra, Centro De Investigacion y De Estudios Avanzados Del IPN, to prepare a collaborative research project on the development of transgenic plants, which contain plant viral genes effective in controlling virus diseases. The citrus industries of both Mexico and the U.S. lose rootstock to the brown citrus aphid, and development of transgenic plants containing plant viral genes has worked on controlling several virus diseases. These researchers wish to test this approach in an attempt to develop citrus genotypes which can resist Tristeza disease, the most destructive virus disease to citrus. Both principal investigators have expertise in this research, and by joining their labs and experience, they can rapidly test this novel approach to control plant viruses. ***